Closeout of JOIDES Resolution IODP Expedition Obligations and Operation of an Instrumented Gulf Coast Repository

Scientific ocean drilling has produced a unique collection of subseafloor sediment and rock cores that help researchers study Earth’s history and processes. Although the drill ship JOIDES Resolution has retired, important work remains to preserve the scientific and technical gains from past expeditions. This project will relocate instrumentation from the drill ship and ensure that the resulting samples, data, and publications remain available to the research community.

Primary goals of this project are to demobilize equipment and supplies from the JOIDES Resolution, operate an enhanced core and analytical laboratory, and migrate historical ocean drilling data and publications to long-term archives. Shipboard instrumentation will be moved to the shore-based core repository and be available to the community to process and analyze scientific ocean drilling cores. The repository will provide an environment for training, education, and outreach activities related to scientific ocean drilling methods and subseafloor core analysis.